Mathematical Sciences: Permutation Representations and Matrix Classes

This research is concerned with a variety of related topics in linear algebra and the representation theory of groups and algebras. The principal investigator will examine permutation representations and apply these results to branched coverings of Riemann surfaces, to zeta functions, prime splitting, and relative Brauer groups of number fields. Further, he will examine how various properties of matrices and representations over a commtative ring are affected by extending the base ring. A matrix is a rectangular array of algebraic data. This research deals with algebraic data from more general objects called rings. This work sits at an interface between traditional matrix theory and abstract algebra. It has potential consequences for several different areas of mathematics including group theory, number theory and algebraic geometry.